Using Technology as a Catalyst for Learning in DevelopmentalMathematics

The goal of this project is to introduce every student in developmental courses, Prealgebra, Introductory Algebra, and Intermediate Algebra, to technology-based problem-solving techniques using graphics calculators and/or computers. Its objectives are to 1) create a classroom environment that fosters mathematical thinking verbally and in writing, and 2) demonstrate to students, through technology, the link between analytical, numerical, and graphical interpretations of concepts. The mathematics department is 1) developing technology-based activities for our developmental courses, 2) securing the necessary equipment and make it available in the classroom to every instructor, 3) training all instructors, both full-time and part-time, on the use of the equipment and provide ideas and guidelines on how to use the equipment effectively, and 4) making sure students have access to the technology both in and out of the classroom. This grant is funding equipment for 7 classrooms with a teacher's station comprised of an overhead projector and screen, networked computer, projection panel, graphics calculator overhead viewer, and Calculator-Based Laboratory system with multiple probes. These classrooms support approximately 2,400 students each year.